Enhancement of Minority Student Achievement in the Science Classroom

This proposal provides for the enhancement of minority student achievement in the science classroom. It is a continuation of the summer and academic year portion of the Institute for Multicultural Science Education for two years, rotating a cycle of 30 new teachers and 30 returning teachers each summer. Science teachers from the Madison and Milwaukee school districts will meet in Madison with Institute staff and faculty for four weeks during the summer to develop instruction in three areas that are predicted to enhance the science classroom environment for minority students. The Institute is designed to foster changes in teachers' attitudes (toward minorities, role of teachers, organization of classroom), and empower the teachers to develop the skills necessary to put those attitudes into practice. The three areas in which teachers will work are: (1) developing greater understanding of the strengths and needs of minority students; and investigating the applicability of (2) the cooperative learning approach and (3) the problem solving approach to enrichment of multicultural science classrooms. Throughout the Institute, teachers will themselves learn in the cooperative learning/problem solving mode, with continuing attention to the needs of minority students. The major task will be to develop new instructional units for teaching their science classes the following year utilizing those modes. Cost sharing is equivalent to 52% of the NSF award.